CRI: Collaborative Research: WORKIT: A Universal Wireless Open Research KIT

Abstract

Program: NSF 04-588 CISE Computing Research Infrastructure
Title: CRI: Collaborative Research: WORKIT: A Universal Wireless Open Research KIT

Lead Proposal: CNS 0454288
PI: Henning Schulzrinne
Institution: Columbia University

Proposal CNS 0453830
PI: Thomas LaPorta
Institution: Pennsylvania State Univ University Park

Proposal CNS 0454329
PI: Elizabeth M. Belding-Royer
Institution: University of California-Santa Barbara

Proposal CNS 0454174
PI: Scott C. MIller
Institution: Lucent Technologies, Bell Labs

This project addresses the need for wireless network tools and platforms as recommended in the 2003 NSF Wireless Network Workshop report. The project will build on the IOTA (Integration of Two Access Technologies) project at Bell Labs. The PI's will enhance and develop IOTA for a software and systems package in a distributable form called the Wireless Open Research Kit (WORKIT). WORKIT will include source code and documentation and also be embodied in low-cost off the shelf hardware. WORKIT will be an enabler for research in mobility management, interlayer awareness, software algorithms for optimal network selection, reconfiguration, security, accounting, authentication, policy download and enforcement, and hybrid wireless networking. Broader impacts of this project include use of WORKIT in education and enabling stronger university/industry collaborations in this area of emerging importance.
at colleges and universities.